CT: New Techniques for Attack Detection, Prevention and Immunization

Software vulnerabilities have been the biggest culprit behind cyber
attacks in the past several years. A handful of vulnerabilities, such as
buffer overflows, format string, SQL injection, command injection,
cross-site scripting, and directory traversals, have come to dominate,
accounting for about 70% of the CVE vulnerabilities reported in the last
two years. Although that these vulnerabilities are well understood and
documented, their number continues to escalate from one year to the next.
New vulnerabilities continue to be discovered in recently released
software, as well as established software.

This will develop novel techniques for defending applications from known
as well as unknown attacks, and for immunizing applications from future
attack instances. The proposed approach can thus protect the integrity as
well as the availability of vulnerable applications. A central component
of the proposed approach is an efficient fine-grained dynamic taint
analysis that tracks the flow of untrusted information through a
vulnerable program. Both specification-based and anomaly-based attack
detection techniques can be made highly versatile and accurate by using
fine-grained taint, and can stop the wide range of attacks mentioned
above. Taint analysis will also form the basis of an immunization
technique that is based on learning input filters that characterize
attack-bearing inputs, and selectively discarding such inputs.

The proposed work can address multi-billion dollar losses experienced due
to cyber attacks, since it can stop most types of exploits before they
cause damage. To maximize impact, the techniques developed in the project
will be implemented into open-source software prototypes.